Acquisition of a Fourier Transform Infrared (FTIR) Spectroscopy System: Measuring Volatiles in Magmatic and Ore-Forming Systems

0447126
Gardner

This grant provide support for the acquisition of a Fourier Transform Infrared Spectrometer (FTIR) for volcanologic and petrologic research on volatiles in magmatic and hydrothermal ore systems requiring precision measurement of the abundance and speciation of water and CO2 in minerals. The FTIR will complement existing microchemical analysis equipment in the Jackson School of Geosciences at the University of Texas including a heating/freezing stage, electron microprobe, laser ablation multicollector and single collector ICP-MS, and a computed x-ray tomography facility. The FTIR will facilitate the acquisition of empirical data that will aid in the development of improved models of the behavior and influence of volatiles on magmatic, volcanic and ore forming processes. The FTIR will also support undergraduate and graduate student training through the incorporation of FTIR lab exercises in an Analytical Techniques course offered by the department.
***